SACNAS: Initiatives For Equity In The Geosciences

ABSTRACT
SACNAS: Initiatives for Equity in the Geosciences

This project of the Society for the Advancement of Chicanos and Native Americans in Science (SACNAS) seeks to recruit Native American and Chicano/Latino undergraduate students in the geosciences, environmental sciences, earth sciences, and astronomy each year for the next five years to attend and to participate in the SACNAS National Conference. The project also supports a session at the annual SACNAS conference that will focus on advances in the geosciences.

Prospective student candidates are contacted and informed of the SACNAS initiative and offered financial assistance in the form of travel and lodging grants to attend the National Conference. At the conference, students attend small group workshops, present research posters, participate in scientific symposia, and exchange ideas in meaningful one-on-one interactions with scientists, teachers, engineers, and professionals. In an effort to theorize and measure the impact of outreach efforts SACNAS will add a tracking dimension to the model for purposes of demonstrating whether programmatic efforts impact student decisions to continue their education into graduate school and beyond. The tracking system will survey students at the end of each academic year and after graduation across a number of educational variables and academic practices. Ultimately, this project increases the representation of Native American and Chicano/Latino geoscience students and scientists within NSF-supported research and education initiatives.